1996 Gordon Conference on Multiphoton Processes to be held in New London, New Hampshire in June 1996

The 1996 Gordon Conference on Multiphoton Processes, held in New London, NH, wil feature a series of presentations on the lastest developments in the field of multiphoton, correlated ionization, coherent control, and spectroscopy. The conference will be attended by both chemists and physicists, experimental and theoretical. Particular attention is given to involving young scientists in the program.